Presidential Young Investigator Award

This study involves considerations of the analysis and forecasting of demographic-economic changes at the regional, metropolitan, and sub-metropolitan levels of detail. The applications of the results affect urban planning, public facility locations, and investments. The data are also useful to private organizations because they may determine the location, job expansion, and marketing strategies for firms.